Presidential Young Investigator Award: Application of Computer Vision Measurements to Solids, Structures, and Robots

Computer vision measurements will be combined with analytical developments in mechanics to obtain useful "hybrid" methods for analyzing the integrity of structures ;itin-situ;ro. An accurate, three-dimensional non-contacting measurement technique which can be used to compute small motions of an object, with particular application to robots will be developed. Initial work will center on the general optics equations and on appropriate simplifications necessary for the intended applications. The improved non-contacting computer-based measurement technique will be applied to investigate the microscale motions of materials, yielding improved models of multilayer media, fracture processes, etc.